RUI: Identification Of Drosophila Wing Shape Genes Using Microarrays And P-Elements

This project will study how genes control the shapes of
living things. It will identify specific genes that affect the
shapes of fly wings, and will assess their relative effects and
possible modes of action. Fly wings offer a fast, cost-effective
way to investigate the basic principles of genetic shape
control, because they can be easily projected and magnified,
and their shapes can be rapidly measured with a computer.
This makes it possible to analyze thousands of measurements
of individual differences, which are required to study the small
effects of many genes. Previous work in mice and flies
indicates that many minor genes are involved in shape control.
In this study the new technique of microarray analysis will be
combined with massively replicated measurements to find and
identify these genes.
In many cases we know how genes guide cells to
differentiate into the separate parts of organisms, but not much
is known about how growth is subsequently regulated to
determine the final shapes of parts. Understanding differential
growth regulation in normal cells should advance our
knowledge in areas of medical interest, with possible
applications to abnormal growth, birth defects, and the origins
of cancer. Frequently, basic research in fruit fly genetics has
led to major advances in human genetics.